Photonic Crystal Enhanced Microscopy for Characterization of Cell Attachment

1132301
Cunningham

Intellectual Merit
We propose the development of a photonic crystal enhanced microscope (PCEM) as a
powerful multimode imaging approach for quantification and visualization of the interactions
between cells and surfaces. The PCEM is designed to utilize the properties of a photonic
crystal (PC) biosensor surface that is designed to produce narrow bandwidth optical resonances
for two distinct purposes. First, the resonant coupling condition of the PC is modified by cell
attachment, and the PCEM is capable of producing images of the spatial distribution of cell
attachment with sufficient resolution to quantify variations in the strength of attachment within
individual cells. Second, the PC surface enables efficient coupling to laser illumination, resulting
in the ability to enhance the output of fluorescent molecules in close proximity to the PC by two
orders of magnitude, using a technique called "PC Enhanced Fluorescence." The PCEM will be
an enabling tool for a broad range of life science research and pharmaceutical screening
applications that require characterization of the interaction between extracellular matrix
materials and cell membrane-expressed proteins in response to cell growth, pro-apoptotic
stimuli, forced differentiation protocols, chemotaxis, ion channel activation, transmembrane
protein activation, and proliferation. PCEM offers the ability to perform assays with a limited
number of available cells for applications involving primary cells or stem cells. The proposed
system builds upon the successful implementation and demonstration of the first PCEM system,
which was designed and built for applications involving DNA microarrays and protein
microarrays. The proposed instrument incorporates objective-coupled illumination from above
and below the PC for simultaneous label-free imaging, bright field imaging, and enhanced
fluorescence imaging with optics designed to optimize the sensitivity and resolution of each
modality when the PC surface is immersed in cell media. The system also incorporates a CO2
environmental chamber to facilitate continuous monitoring of cells for extended periods of time.

Broader Impacts
Biologists are developing a more sophisticated understanding of how cell membrane
interactions with surfaces, chemical stimuli, and other cells are modulated, and the role of
integrins, ion channels, G-coupled transmembrane proteins, and filapodia in fundamental
processes such as migration, wound healing, differentiation, and apoptosis. Yet, there are few
tools currently available that allow visualization and quantification of these processes. While the
initial set of demonstrated applications for PCEM will include cancer cell cytotoxicity, T-cell
induced apoptosis, stem cell differentiation, and cardiac cell stimulation, the system's
capabilities extend to any cell type and any process that can be carried out upon a surface. The
environment at Illinois, in which the PI is an investigator within the NSF-sponsored Center for
Cellular Mechanics (CCMB) IGERT, and the NIH-sponsored Cancer Nanotechnology training
grant, and the location of the system within the Micro and Nanotechnology Laboratory's
BioNanotechnology Laboratory assures that the system will be included in multidisciplinary
training programs. Users of the system will be comprised of faculty, graduate students, and
undergraduate students from Engineering, Pharmacology, Animal Sciences, Microbiology, and
Immunology. The project will develop general-purpose methods for studying cell-surface
interactions that can be used broadly in pharmaceutical screening and life science research -
extending the applicability of photonic crystal biosensors. The PI has a successful track record
of biosensor instrumentation invention, development, and commercialization.
The proposal also describes an education plan that is closely linked with the program's
technical goals with impact upon graduate student research, undergraduate research,
undergraduate classroom/laboratory learning, and teaching biosensing/photonics concepts to a
University-based all-girls middle school. The PI has a strong track record for involving
undergraduate students in his research, and for making the technology developed under NSF
funding available in his ECE416 "Biosensors" course, both in the form of lecture topics and
hands-on laboratory experience.